NSF Graduate Traineeships "Democracy and Democratization: Social Conditions, Institutional Forms, Transitions"

GER-9554569 Calhoun The present proposal seeks to enhance the interdisciplinary training of graduate students in sociology, history, anthropology, and political science to be better able to contribute to understanding of (a) the social conditions of democracy (b) the nature of transitions to democracy and their consolidation, (c) democracy in historical perspective, and (d) cultural and ethnic issues in democratic development. The UNC Traineeship program aims specifically to overcome the unfortunately sharp divisions between three major styles of work: studies of large scale quantitative data sets; comparative quantitative and qualitative historical studies and ethnographic studies of smaller numbers of cases (including single cases set in comparative context); and social and political theory. All trainees will gain competence in all three of these major approaches to the field. The Traineeship program will be centered in a two-semester interdisciplinary course sequence required of all trainees and offered annually, and a proseminar for trainees, other interested graduate students, and faculty. All trainees will be eligible for up to four years of further financial support from UNC, contingent on satisfactory progress. Trainees will be selected by a committee composed of the Principal Investigator and faculty from the four departments. Trainees will have the option of an international field practicum in the summer after their Traineeship year. Programs are in place with the Constitutional Commission of Eritrea, the Ford Foundation and a cluster of NGOs in India, and university-based research centers in Russia and Eastern Europe, Asia, Africa and Latin America.